NCAM Dissemination Project to Community Colleges

NCAM Dissemination Project to Community Colleges

This Demonstration, Enrichment and Information Dissemination project is a collaboration
between the CPB/WGBH National Center for Accessible Media (NCAM) and the League for
Innovation in the Community College. NCAM will work with the League to disseminate and
institutionalize use of resources that can make technology-enabled science, technology,
engineering and math (STEM) learning resources accessible to students, faculty and
administrators at community colleges.
Project goals are to elevate the issue of accessibility within the community college system;
disseminate NSF-funded demonstration models, guidelines, tools and resources that enable
creation of accessible STEM content; and encourage the community college system to
participate in the development and implementation of accessible specifications for distributed
learning platforms.
NCAM will conduct presentations and workshops at annual League conferences, offer on-site
Accessibility Forums at member colleges, and deliver online training and resources through the
League's Web-based learning community, Transformational Learning Connections
(LeagueTLC). Products and demonstration models that will be shared include:
* distributed learning industry specifications and standards
* developers' guidelines to creating accessible content, focused on math and science solutions
* accessible online physics curriculum with multimedia lectures, quizzes, and electronic texts
* demonstration models of accessible math and science content within software
* access authoring tools including shareware and commercial products and tutorials
Project activities will strengthen capacity within community colleges to create and utilize
accessible math and science content in technology-enabled learning. Guidelines and technical
resources will facilitate community college creation, maintenance, control, packaging and
presentation of accessible digital content.
Results will serve a wide array of users of online community college content " people with
sensory disabilities, people with learning or print disabilities who benefit from multiple modes
of presentation, and people with physical disabilities who use assistive technologies for
navigation and control of content.
Accessible content and systems will improve the quality of learning, teaching and/or work life
for all of these users, whether they are community college students, faculty members and/or
administrators.
Through this initiative, the League for Innovation in the Community College will encourage use
of its resources to connect and empower learning between innovative leaders and model
programs in community colleges that are recruiting and preparing students with disabilities for
STEM careers. This Project will also serve to build support and generate strategies within the
League to mount a major learning thread on accessibility at one of the League's conferences.